"Two of Every Sort"

The Museum of Science will design and produce an exhibition, "Two of Every Sort", whose aim is to present a scientific basis for the public's understanding of genser, reproduction and human diversity. Using interactive techniques and state-of-the-art media technology, the exhibition will debut at the Museum in Boston, tour science centers in seven other cities and reach an audience of nearly 2.5 million. The eight museums are members of the Science Museum Exhibit Collaborative, which has approved "Two of Every Sort" as one of a second round of shared-cost exhibitions scheduled to appear at each of the member institutions. "Two of Every Sort" (4,000 square feet) will present introductory scientific overview, ranging among biology, anthropology, botany and biomedical technology, to make discussion of these difficult and sensitive matters more meaningful. The exhibit will offer an unusual opportunity to millions of people -- families, teachers and youngsters, to consider complex questions in a safe, friendly learning enviroment.